Dynamics of Elementary Processes in Solutions of Biopolymers

9317042 Schurr The rotational, translational, and deformational Brownian motions of particular DNAs and DNA/ligand complexes are studied by modern optical techniques, namely time-resolved fluorescence polarization anisotropy (FPA), dynamic light scattering (DLS), transient photodichroism (TPD), and a transient polarization grating method proposed for development. Specific objectives are (1) to investigate the length dependence of the hydrodynamic radius of DNA; (2) to determine the dynamic bending rigidity of DNA and its dependence upon salt concentration, intercalator binding, and other factors; (3) to complete construction of the transient grating instrument; (4) to examine the effect of bending strain upon the torsion constant and circular dichroism spectrum by studying small DNAs before and after circularization, and to study structural transitions induced by temperature in those DNAs; (5) to examine the effects of Mg2+ ions upon the structure of plasmids as a function of superhelix density; (6) to study circular DNAs as a function of superhelix density to observe and characterize the first transition to writhe; (7) to apply a new Monte Carlo algorithm to generate canonically distributed sets of tertiary configurations for circular DNAs with fixed linking number, from which average static structure factors and transnational diffusion coefficients are calculated, and to calculate the differences in free energy between topoisomers; (8) to determine the effect of anisotropy of the bending potential upon the structure, distribution of torsional strain, and free energy difference between topoisomers; and (9) to examine the effect of the ordinary-extraordinary transition upon the rotational dynamics of 150 bp DNAs. %%% In their natural setting, most DNAs are highly bent and/or twisted, and there are many instances where this deformation is achieved at considerable energy cost to the cell. The reasons why cells maintain their DNAs in such deformed states are stil l unclear, although several hypotheses have been advanced. One speculation is that sufficient bending deformation may alter the internal structure of the DNA (in a way that goes beyond simple elastic strain), so that a new internal structure or combination of structures results. In this way, the properties of the DNA could be altered, and thereby regulated, by the degree of deformational strain. The present work endeavors to investigate this possibility in several ways. In one experiment, both linear and circular forms of the same short DNA are examined to ascertain whether the internal structure is substantially altered by the bending inherent in the circular molecule. In another experiment, the different responses of the DNA to very rapidly and also very slowly varying bending forces are compared. When the bending forces fluctuate more rapidly than the changes in internal structure can take place, the DNA appears stiffer than it does in response to slowly varying (or permanent) bending forces that allow sufficient time for changes in internal structure to occur. These experiments rely on sophisticated optical measurements that are capable of determining the twisting and bending rigidities of these molecules in very short times as they move and spontaneously deform in solution. In another experiment, the responses of differently deformed DNAs to Mg2+ ions are investigated to better understand the roles of both Mg2+ and DNA deformation in controlling the internal structure and overall conformation. In this case extensive computer simulations are required to interpret some of the optical data pertaining to DNA conformations. The results of this work provide a foundation for understanding the manner in which DNA deformation controls the internal structure and overall conformation, and thereby regulates its interactions with various proteins involved in the read-out of its genetic information. ***